NSF/Purdue Workshop on Grand Challenges in Computer Architecture for the Support of High Performance Computing; Purdue University; December 11-13, 1991

The workshop will bring together approximately twenty people from academia and industry. The goal of the workshop is to identify critical research topics in computer architecture as it relates to high performance computing. These topics will consitute a set of "grand challenges" for computer architecture research and development. The workshop will be held at Purdue University on December 11 to 13, 1991. A report on the discussions and conclusions will be published.